2001 Polymer (East) Gordon Conference; New London, NH; July 8-13, 2001

The Gordon Research Conference on Polymers to be held July 8-13, 2001, will be focusing on the following areas:
Precision Synthesis of Polymers/Catalysis of Polymerization Reactions
Shape Control, Nanoparticles, Functional Dispersions
Functional Macromolecules and Nanosystems
Tissue Engineering, Biomaterials
Nanostructure Engineering by Self-organizing Macromolecules
Functional Materials and Inorganic/Organic Hybrids
%%%
Partial funding is provided to enable attendance of some of the Conference participants.